A Cathodoluminescence Microscope for Investigating 3- Dimensional Fold Evolution, Pedogenic Carbonate Precipitation and Metamorphic Fluid-Rock Interaction

This award will provide 58% of the funds required to purchase a cathodoluminescence (CL) microscope system for research and teaching use in the Department of Geological Sciences at the University of Tennessee-Knoxville. The University is committed to providing the remaining funds needed for the acquisition of this equipment. The CL technique (inducing luminescence by electron bombardment of the microscopic target) is useful in bringing out features otherwise invisible during microscopy of geological samples. The Principal Investigator and colleagues in the Department of Geological Sciences are involved in research on rocks that have been tectonically deformed, on ancient soil profiles, and on processes of rock-fluid chemical interactions during rock metamorphism. In all of these studies the CL method is a necessary tool for detecting microscopic mineralogical changes used to interpret geological processes.